Sequential Monte Carlo Methods for Computationally Intensive Problems

Sequential Monte Carlo methods provide a versatile and powerful tool for
solving complex statistical inference problems. The objective of this
proposal is to develop sequential Monte Carlo techniques in three
important areas: conditional inference on multiway tables, likelihood
inference in population genetics, and adaptive control of nonlinear
stochastic systems. A common theme in these applications is computational
complexity. The investigator develops efficient proposal distributions
and resampling techniques to improve current methods in these three
applications. New theories arising from these applications shed light on
several fundamental issues related to the implementation of sequential
Monte Carlo methods, in particular, the decomposition of a high
dimensional problem into small components so that each component is easy
to handle and the sequential nature of the problem can be utilized, and
the choice of the proposal distribution so that it is easy to sample and
close enough to the true underlying distribution.

The investigator develops innovative sequential Monte Carlo techniques in
three important areas. The first area is conditional inference on
multiway contingency tables. Such tables arise very often from social and
medical sciences, including large survey data and grouped case-control
data with several risk factors. The second area is likelihood-based
inference in population genetics, which is motivated by the interest in
inferring key biological characteristics of the major pathogenic serotypes
of Cryptococcus neoformans, an agent of serious respiratory disease in
humans. The third area is on-line identification and adaptive control of
nonlinear stochastic systems. The investigator improves the current methods
used in these three applications and develops a systematic theory that
provides insight into general strategies for applying sequential Monte
Carlo methods. New theories arising from these applications are of
interest across a broad range of areas in statistics, science and beyond.
The proposed research has significant impact on education through
involvement of Ph.D. students directly in the proposed research and
incorporation of results into undergraduate and graduate courses.